MRI: Acquisition of an EPR Instrument

With support from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at the University of Akron will acquire an Electron Paramagnetic Resonance (EPR) Spectrometer. Research projects to benefit from the EPR include studies on such paramagnetic materials as 1) metallo-enzyme models; 2) novel organometallic materials; 3) MRI contrast agents; 4) porphyrin complexes; 5) biomaterials; 6) conducting polymers; 7) silyl radicals; 8) powder coatings; 9) catalysts; and 10) dendrimers.

An electron paramagnetic resonance (EPR) spectrometer yields information on the molecular and electronic structure of molecules. It may also be used to obtain information about the lifetimes of free radicals, short-lived species that are often essential for the initiation of tumor growth and/or a variety of chemical reactions. These studies will have an impact in a number of areas, from manufacturing to materials and biological chemistry.